Advancing the Careers of Women Faculty in the Chemical Sciences

This award to the University of Oregon by the NSF Chemistry Division's Special Projects, and the National Institute of General Medical Sciences of the NIH, supports activities by the Committee on the Advancement of Women Chemists to increase the number and the effectiveness of women in leadership positions in the chemical sciences. The project will (1) conduct research aimed at understanding the factors that are inhibiting the careers of female faculty in the chemical sciences, (2) develop and implement programs that increase the number of female faculty, (3) establish networks among peers, (4) develop programs that increase the career success of women, and (5) evaluate and disseminate what is learned. This project will address gender disparity in the academic chemical science workforce.